Space Weather: Modeling Polar Cap Dynamics

The investigators will study the dependence of polar cap dynamics on solar wind conditions using a magnetohydrodynamic (MHD) code. The model results will be compared with observations of polar cap dynamics obtained using optical data from Eureka, Canada. Particular emphasis will be placed on periods when the interplanetary magnetic field makes pronounced changes in direction and the optical data show distinct auroral behavior. Simulation results will be used to specify the polar cap boundaries which will be compared to the Eureka measurements or satellite images, when available. The research results will form the basis for improved models of the polar magnetic field, for prediction of solar particle entry regions, and for predicting trajectories to satellite and ionospheric altitudes. The results will also enhance understanding of the dynamics and origins of polar cap aurora. MHD models have great potential in helping to mitigate the potential hazards on technological systems due to space weather effects.